Theoretical Studies on Baroclinic Waves and Frontogenesis inthe Presence of Small Moist Symmetric Stability

The objective of this project is to investigate the development of nonlinear baroclinic waves and three-dimensional frontogenesis in situations where a basic jet and a conditionally moistured zone coexist. The semi-Lagrangian coordinate transformation and the finite element method will be used to solve the three-dimensional moist semi-geostrophic equations. The results are expected to shed light on the formation of stratiform precipitation and frontal rainbands, and their effects on the evolution of the frontal zone.